Institute for Mathematics and its Applications

Abstract

Award: DMS-9810289
Principal Investigator: Willard Miller, Jr.

The Institute for Mathematics and its Applications (IMA) is
located at the University of Minnesota - Twin Cities and is
directed by Dr. Willard Miller, Jr. The mission of the IMA is to
identify problems and areas of mathematical sciences research
related to challenges faced by other sciences and industry, to
demonstrate the impact of mathematics and statistics on other
disciplines, and to encourage the engagement of mathematical
scientists with these areas of application. Participants in IMA
activities include long- and short-term visitors, drawn from the
mathematical sciences and other disciplines relevant to current
programs. This award includes support for postdoctoral fellows,
whose mentoring is an essential element of the IMA's work. Some
of the Institute's postdoctoral researchers spend much of their
time working with participating corporations of the IMA, and
industrial researchers are involved in IMA programs and program
planning.

The IMA hosts scientific programs on short (weekend to one-week)
and long (academic year) time scales. Most of the Institute's
programs are conducted in its Minneapolis facilities, but the IMA
also sponsors conferences and graduate student summer programs at
its academic participating institutions. This institute has no
permanent faculty or research personnel, draws program organizers
from many disciplines, and anchors the participant lists for
annual programs in a base of distinguished visitors and one- or
two-year postdoctoral researchers. The Institute for Mathematics
and its Applications is supported by the NSF as a Mathematical
Sciences Research Institute, funded by the Division of
Mathematical Sciences.